X-ray Lithography Process Studies

This research program on X-ray is a continuation of the development of mask response studies, process modeling and photoresist characterization. The program will provide new insights and techniques in the areas of semiconductor manufacturing using X- ray Lithography-based techniques. Thrust: Development and study of X-ray Lithography process components suitable for 0.25 micrometer and below. These studies capitalize on the uniqueness of the X-ray source, the electron storage ring Aladdin, and of the facilities of the Center for X-ray Lithography. Methods: concentrate on key areas offering the highest productivity and likelihood of making a significant impact. These areas will involve the use of the inspection and characterization facilities available at the Center for X-ray Lithography to maximize the effectiveness of the studies. We plan to continue the study of mask response, extending it to silicon carbide and polysilicon membranes and to continue developing new fundamental photoelectron models in the area of photoresist modeling. New topics will be started in the area of projection X-ray Lithography, based on the use of the existing X-ray microscope, and of alignment with the implementation of the linear Fresnel zone plate system. Goals: to further characterize and understand mask response; to perform preliminary experiments in projection X-ray Lithography; to extend the physical models of photoresist response; to implement and test a novel alignment scheme based on linear Fresnel zone plate.